Americas Program Dissertation Enhancement Research: Historical Biogeography and Systematic Relationships of South American Murid Rodents

9417252 Yates This Americas Program award will support the dissertation research of Jorge Salazar-Bravo, a Bolivian doctoral student working under the direction of Dr. Terry L. Yates at the University of New Mexico. The research, on the historical biogeography and systematic relationships of South American Murid rodents, will take place in Ecuador. The researcher will test two current models of murid evolution in South America using sigmodontine rodents, a genus of mice widely distributed on the continent. The hypotheses have specific predictions in the form of area cladograms that can be tested using a cladistic approach, but neither of the two models have been adequately tested. This project will estimate the phylogenetic relationships of two distantly related genera of the sigmodontine rodents, based on the cladistic analysis of mitochondrial DNA sequence data and outgroup comparisons with other closely related genera. If neither of the hypotheses fit the phylogenetic relationships, alternative hypotheses will be tested. This project will benefit the areas of macroecology and biogeography because it will shed light on historical factors that determine species richness at the local and continental scale, which, in turn, will help in defining and strengthening areas of potential interest for conservation purposes. The results may also be used in combination with those of avian biologists and others to strengthen and/or revise hypotheses of the evolution of open vegetation in South America. ***